REU-site: Summer Undergraduate Research in Biochemistry

This award supports summer research by undergraduates at the Department of Biochemistry of the Michigan State University. Students, most of whom will be recruited from other institutions in the midwest, will pursue research related to ongoing research programs of 23 faculty members. Students will also attend weekly faculty research seminars and participate in weekly presentations by students and postdocs. Students will be expected to present the results of their 12 projects in written and oral communications.